Using Graphing Calculators to Enhance the Teaching of Undergraduate Collegiate Mathematics

The University of South Alabama will conduct during the summers of 1996 and 1997 a series of four four-day hands-on workshops for two and four-year college faculty on the appropriate use of the Texas Instruments TI-85 and TI-92 graphics calculators in collegiate mathematics. Two of the workshops will take place during the Summer of 1996 and two will be scheduled for the Summer of 1997. The purpose of the workshops is to engage participants in developing an intellectual framework for the appropriate use of the graphing calculator in the study and teaching of precalculus, calculus, differential equations, matrix theory and elementary statistics. This will be accomplished both by having participants work through material developed by the PIs and also by having participants create their own materials. Upon completion of one of these workshops participants will be able to: 1) make appropriate use of the graphing calculator, and address the technical and pedagogical issues such usage involves; 2) return to their home institutions and take the lead in the appropriate introduction of the graphing calculator into their curricula; and 3) help build a coalition between two and four-year institutions so as to foster a more coordinated effort in the teaching of collegiate mathematics courses.